Chemical Reactions as Phase Transitions

Dr. Greer plans experimental measurements to test the applicability of statistical mechanical models originally developed for magnetic phase transitions to cases of equilibrium polymerization reactions. In particular, she will test the predictions of the theory for the phase equilibria, the heat capacity, the density, and the viscosity, of sulfur and of various so-called living polymers (certain organic molecules which show reversible polymerization). She also plans to study the kinetics of these polymerization processes for comparison with computer simulations being done by other workers. The scientific interest in the general class of so-called living polymer systems is widespread. It includes analytical theory, computer simulations, and laboratory experiments such as Dr. Greer is carrying out. Her work promises to strengthen the intellectual linkages between modern phase transition theory and chemical kinetics and reactivity. It is important as an outstanding example of the essence of the scientific enterprise: the seeking of the most general paradigm of the physical world.